Computerization of an Undergraduate Physiology Laboratory

This project continues a curricular plan initiated in 1985 to improve undergraduate learning in anatomy and physiology. The plan began with an institutional grant that provided computer software development to augment the anatomy-physiology lecture series. The Science Division developed a microcomputer laboratory with eight Apple 2E microcomputers, color monitors, disk drives and an Apple printer. A pilot study of computerized data acquisition in physiology laboratories proved to attract student interest. Further investigations and an actual on-campus Intelitool demonstration preceded the developmental work that led to this grant. The primary objective of the current phase of the project is to interface computer technology with the biology laboratory by using the Intelitool computerized system and programmable calculators. The Intelitool system stimulates experimental inquiry and research by providing data acquisition and analysis using Cardiocomp, Physiogrip, Spirocomp, and Flexicomp packages. Creative laboratory experiments are designed to maximize critical thinking and analysis. Additional printers provide students with print-outs of graphs and data sheets. Programmed calculators enhance statistical analysis and increase time devoted to the interpretation of actual data. Besides improving the physiology curriculum, this project also is expected to encourage student interest in scientific research, increase the number of students going on to graduate work in science (including women and minorities), and expose science student teachers to modern computerized laboratory technology. The grantee institution is matching the NSF award with an equal sum obtained from non-Federal sources.